PGE/PG: Planning the Central Valley Community Science Project for Gender Equity in Culture, Climate and Curriculum

The planning grant effort is aimed at building a coalition of collaborators for submission of a Large Collaborative Project Gender Equity Program proposal (the "Project") to NSF in 2000. The Project's overarching aim is to help and encourage girls to become productive contributors to new emerging science and technology infrastructures.
The planning process will be overseen by a faculty steering committee made up of education experts and female scientists (math, engineering, physical sciences). A graduate student will be hired as Project Assistant to help the steering committee make the necessary contacts with area school districts, non-profit organizations, industry and universities who will collaborate with UC Davis faculty. Planning will also involve focus groups with target audiences, testing of Project components and gathering data on existing successful programs. Finally, the planning period will allow two new UC Davis Deans to work with the Project Development Team to integrate the Project into the University's long-range research-to-education plans.